The Study of Acid Mine Drainage in a Quantitative Analysis Course

Chemistry (12) An inductively coupled plasma emission spectrometer is being purchased to develop and revise research-based projects in the undergraduate quantitative analysis laboratory course. Current laboratory projects focus on acid mine drainage as a way to investigate geochemical transformations of metal sulfide minerals and the release of metals into aqueous phases. In the initial parts of the course students become familiar with various tools in quantitative analysis, after which the equipment serves an integral part of extended, inquiry-based laboratory projects that are largely designed by the students themselves, but based upon research literature.